Operator Algebras and Conformal Field Theories

Abstract
Xu

The PI will study interactions between operator algebras and conformal
field theories which have proved to be very fruitful lately. The main
emphasis of this research is placed on the study of
certain representation theory
questions such as Kac-Wakimoto conjecture, orbifolds and boundary states in
conformal field theories using operator algebraic techniques.
The applications of these operator algebraic techniques
will lead to proofs of representation theory questions
and shed lights on exotic subfactors such as those coming from
conformal inclusions.

The theory of operator algebras was introduced by John von Neumann
in order to provide a proper mathematical framework for Quantum
Mechanics. Conformal field theory was a theory
describing critical phenomena in
condensed matter physics, and it also plays an important role in
string theory. The remarkable interactions between operator algebras
and conformal field theory has led to many interesting mathematical
issues. The aim of this research
is to find solutions to some of the important mathematical issues that
surface in this context which have a wide range of applications.